PYI Award: Studies of Convective Boiling in Compact Heat Exchanger Geometrics and Mixed Convection Heat Transfer

The research consists of studies in two areas, the first being convective boiling and two-phase flow in compact heat exchangers. A series of experimental and analytical studies is employed to investigate the effect of flow conditions, fluid properties, and geometry on convective boiling heat transfer in channels with offset strip fins. Flow visualization studies and direct measurements of local heat transfer coefficients are planned. Convective boiling in ribbed-plate and dimpled-tube geometries is also examined. The second portion of the project consists of experimental and theoretical studies of mixed convection flows near the heated vertical walls of a rectangular enclosure in the presence of a horizontal forced flow. For different enclosure geometries, the experiments examine the interaction between the forced-flow and buoyance mechanisms, and determine their combined effects on flow and heat transfer. Numerical predictions of the flow field and heat transfer are developed concurrently and compared with the experimental results.